Conservation Laws with Partial Dissipation in Continuum Mechanics

This project is to study laws for continuum mechanics, describing the conservation
or balance of physical quantities such as mass, momentum, energy, etc. The
mathematical description of those laws are complicated nonlinear systems of
partial differential equations. The systems contain certain terms representing
the dissipative mechanism such as viscosity, heat conduction, frictional damping,
relaxation, species diffusion, etc. On one hand, the nonlinearity of the systems
tends to generating singularities (shock waves) in the flows. On the other hand,
the dissipative mechanism eases such a tendency, but gives rise to richer wave
patterns at the same time. The overall behavior of the flows then depends on
the competition between the two. The difficulty of the problem lies in the fact
that the dissipation exists only in certain equations (laws) of a system. For
instance, physics dictates that the conservation of mass should not have any
dissipation. Such a fact then further complicates the competition between
nonlinearity and dissipation. In different wave directions, one or the other
dominates. It is then easy to understand that in general there is no explicit
formula for a solution. In fact, even the existence of a solution can be an open
question. In this project, the awardee will study when a solution can
exist all the time. Furthermore, if a solution exists all the time, what is
its qualitative behavior? To this aim, the awardee will first reduce the system
into a set of simplified, decoupled equations. Each of them represents a wave
along a particular direction, and can be solved explicitly. These waves together
give the time asymptotic wave pattern of the original system. Next, the awardee
will study how well the asymptotic solution approximates the actual solution.
Through such a study, the understanding of the underlying physical phenomena can
be obtained.

The problems addressed in this research can be illustrated by an example.
When a space shuttle returns to the earth, the temperature of the air
around it becomes so high that the internal structure of the molecules in the air
gets excited, and chemical reactions occur. The air then loses its local thermodynamic
equilibrium state. The departure from equilibrium in turn provides the ``driving force" for
internal changes. The air relaxes towards its local equilibrium state through
molecular collisions. Such relaxation processes have significant influence in
the acoustic directions, but not the particle path direction. The awardee
will study how the relaxation processes change the overall behavior of
the air flow in this situation.